Euler Characteristics and Lifting Problems in Arithmetic Geometry

This proposal concerns research by Prof. Ted Chinburg on arithmetic geometry
and Galois theory. The first goal of the proposal is to study equivariant Riemann
Roch theorems. This subject concerns Euler characteristics associated to actions
of groups on objects arising from arithmetic geometry. New methods for
determining coherent Euler characteristics will be developed and applied to
study modular forms and conjectures about L-series. In particular, some
predictions about the Mordell-Weil groups and Tate-Shafarevich groups of
Jacobians of modular curves will be considered. The second goal of the proposal
is to study equivariant Weil-etale cohomology and its generalizations, along
with invariants in derived categories arising from group actions on schemes.
The third goal of the proposal is to continue work on a fundamental finiteness
problem concerning how finite groups of automorphisms act on the homogeneous
coordinate rings of varieties in positive characteristic. The final goal of
the proposal is to study the liftability of group actions on curves in positive
characteristic. In particular, a conjecture about those groups for which lifts to
characteristic 0 always exist will be considered.

The broader context of this proposal is the study of symmetry as it pertains to
algebra and number theory. Symmetry has been a guiding principle in algebra
since the work of Galois on the solvability of equations by radicals in the 1830's.
By studying the symmetries which solutions of algebraic problems must have
it they exist, one can in many cases show that no such solutions exist, or that
the solutions are strongly constrained. This proposal will develop this principle
in some new directions. The goal is to apply the principle to prove some
central conjectures about L-series and the relation between being able to solve
systems of equations modulo prime numbers and being able to solve them
exactly with integers or with whole numbers. The study of solutions
of equations in integers and modulo prime numbers has been of practical
significance to cryptography and to the construction of error correcting codes.